Joint Proposal For The Dissemination of The Interactive Mathematics Program Throughout New England

9633811 Oblas Northeastern University is working with twenty school districts in New England to change their curriculum and pedagogy to meet the NCTM Standards. These school districts are joining with the New England Regional Center for the Interactive Mathematics Program (IMP), the Center for Enhancement in Science and Mathematics Education, the Center for Innovation in Urban Education and the Mathematics Department at Northeastern University to implement the IMP curriculum in their schools. Teachers of mathematics at the participating schools receive intensive professional development workshops during the summer and periodic workshops during the school year.